Academic and Professional Development for Upper-Division Computer Science, Engineering, and Mathematics Students

Twenty-seven scholarships are being awarded annually to academically talented, financially disadvantaged upper division students. There is an emphasis on the recruitment of women and underrepresented minorities. The scholarships, together with an established infrastructure and student support services, are enabling the selected students to maintain full-time enrollment and achieve a bachelors degree in computer science, engineering or mathematics. The Guaranteed 4.0 Learning System is helping students learn improved study and time management skills. The overall program is directed toward the students making a smooth transition to research, graduate school and the technical workforce.